ARCSS Land-Atmosphere-Ice Interactions (LAII) Science Management Office

ABSTRACT OPP-9614135 WELLER, GUNTER UNIVERSITY OF ALASKA This is a project to support the Land-Atmosphere-Ice Interactions (LAII) Science Management Office (SMO) and Science Steering Committee (SSC). The SMO will support the activities of the LAII SSC (e.g. workshops, planning meetings, and coordination with international science projects), publish a newsletter, promote correspondence of LAII results at national meetings and between PIs, facilitate logistical arrangements, and promote integration of LAII activities with other components of the Arctic System Science (ARCSS) Program. The SSC will conduct planning meetings for future LAII research projects, appoint working groups to conduct workshops for development of science plans for new initiatives, and provide the ARCSS Program with an assessment on priorities for LAII global change initiatives/projects in the Arctic that are developed through the workshops.